Production and Perception in the Transition to Speech

ABSTRACT Wide individual differences have been reported for the production of early phonetic shapes and structures. On the other hand, infants' abilities to discriminate speech sounds have been found to be remarkably strong, and universally available, regardless of the language of the environment. Recent findings, however, suggest a loss of ability to discriminate non-native speech sounds between 10 and 12 months. The issue of the relation between perception and production in development remains unresolved, particularly the completeness and accuracy of children's perceptual storage of adult words at the onset of their production of words. The goal of the present project is to test and refine a promising new methodology for experimental testing of the relationship between vocal production and perception in infants in the course of their transition into speech. The technique being developed is an operant conditioning paradigm which rewards children's presses of an illuminated panel under appropriate stimulus conditions. If the technique proves reliable, it will be possible for the investigators and others to use it to examine children's capacities for phonetic discrimination more thoroughly and accurately than has been done before.